Dissertation Research: Aphid Endosymbionts: Their Population Biology and Role in Aphid Adaptation

Nuzhdin
0073072

Microorganisms play an important role in the biology of many insects, with
effects ranging from mutualistic to pathogenic. Bacteria of several types
are found in some but not other individual aphids sampled from natural
populations. These bacteria are transmitted from mother to daughter, and
thus--if they affect the host phenotype--are a source of heritable
variation between aphids. The goal of this research is to assess: (a) the
transmission of these bacteria, (b) their fitness effects, and (c) their
role in aphid adaptation. Specifically, this work will measure variation in
the presence of symbionts across aphid populations, their rate of
transmission, the heritability of symbiont abundance, and the relationship
between symbiont abundance and aphid fitness. A long-term selection
experiment will be conducted to investigate the role of symbionts in host
plant adaptation.

Although heritable microorganisms are commonly found in insects, their
effects on host fitness are generally unknown. This study will contribute
to understanding the role of such organisms in the biology of aphids, an
important insect pest. Additionally, this study is significant and unique
in that it uses the aphid-symbiont community as a model for understanding
interactions between selection acting at different levels: among aphids
with different symbiont communities, and among bacteria within individual
aphids.